Artificial Intelligence Resource Kit for Two-Year College Faculty

Two-year colleges prepare much of the nation's skilled technical workforce, yet the faculty who teach in these programs face mounting demands. They must keep curricula current with fast-changing industry needs, build engaging lab and course materials, and evaluate their programs, all while carrying heavy teaching loads. Artificial intelligence (AI) tools can ease this burden, but most faculty have little training or support to use them well. This project will create a practical kit of AI-powered tools and a supportive professional development program built specifically for two-year college technical faculty. Working in small, hands-on cohorts, faculty will learn to use and customize everyday AI tools to design lessons, develop labs, streamline paperwork, and guide students in the responsible use of AI. Faculty will share what they create through an open online hub, and a train-the-trainer approach will help them lead AI workshops on their own campuses. By helping faculty work more efficiently and teach more effectively, the project aims to strengthen technician education and prepare students for AI-influenced careers.

The project will design, deploy, and iteratively refine a suite of generative-AI tools and an evidence-based professional development model that will build AI literacy and instructional capacity among two-year college technical faculty. Using a framework modeled on the NSF ATE Working Partners model, the project will engage cohorts of faculty in a program that combines asynchronous modules, synchronous collaboration, peer support, and authentic classroom application. Each cohort cycle will function as a continuous-improvement cycle, with pre-post measures of AI self-efficacy and instructional practice, reflections, interviews, usage analytics, and artifact review informing the revision of the tools and curriculum. Through independent formative and summative evaluation, the project will examine the conditions, barriers, and enablers of AI adoption among technician educators; the effect of iterative co-design on tool usability and adoption; changes in faculty productivity and instructional practice; and diffusion through a train-the-trainer model. This project is funded by the Advanced Technological Education program, which focuses on the education of technicians for the advanced-technology fields that drive the nation's economy.